Environmental Change and Adaptive Resource Markets: Computer-Assisted Markets for Water Allocation

The allocation of water is a complex system, involving externalities, public goods, and shared production facilities. Such complex systems have employed central authorities to solve coordination problems and dictate solutions to the allocation problems. In a world of rapid technological and environmental change, government solutions may move too slowly to allow a society to adapt efficiently. Smart, computer-assisted markets provide the promise of developing flexible decentralized solutions to complex problems. Smart markets allow private market allocations to instantaneously account for coordination problems. They also can incorporate environmental or distributional constraints; thus, individual decision makers can respond to a changing environment, allowing society as a whole to adapt rapidly. This research develops, tests, and implements a generic smart market for water allocation which will be initialized for application in California. The research provides an empirical testbed for a smart market for water allocation in any arid land: other applications will simply involve a different network configuration and supply sources whose parameters can be used to initialize the appropriate nodal trading system.